Reactions and Deposition of H202 and Organic Compounds on Ice Films Representative of Tropospheric Ice Clouds

This starter grant award to Northern Arizona University will support the research of Professor Marin S. Robinson. The research examines the process by which ice is a scavenger of oxidized and partially oxidized organic molecules from the gas phase. Near-grazing angle reflection spectroscopy is used to examine bulk and surface properties of hydrogen peroxide uptake onto water-ice films representative of tropospheric ice clouds. Pure and doped films, as well as films co-deposited with organic reagents, are studied. Gas phase oxidation products are monitored using mass spectrometry. Condensed phase oxidation products are monitored using Fourier transform infrared-reflection absorbance spectroscopy. The results provide insights regarding the competition between gas phase and condensed phase oxidation mechanisms. The research clarifies the role ice plays as a tropospheric scavenger and aids in interpreting the complex heterogeneous chemistry that takes place in aqueous cloud droplets.